REU: Robot Navigation using Composite Landmarks

EIA-9912247
Sutherland, Karen
Augsburg College

Research Experiences for Undergraduates: Robot Navigation using Composite Landmarks

These research projects draw from the areas of robotics, behavior learning and cognitive science within an environment of robot navigation. The PIs use small robotic vehicles to test their algorithms and model the behavior of the desert ant, Cataglyphis Bicolor. This ant uses landmarks consisting of more than one point (composite) as opposed to simple point landmarks. Examples of composite landmarks in everyday environment are ridgelines, saddle points and peak formations. Projects focus on development and testing of algorithms for recognizing composite landmarks, development of learning algorithms to map sensory input to motor output, and comparing the use of composite versus simple landmarks. The projects include building Lego test vehicles, writing simulations and implementation of image processing techniques. The program has an emphasis on technical writing and speaking skills.